Mathematical Sciences: Robustness in Multivariate and Directional Data Analysis

This research will look at robust estimation of multivariate location and dispersion. The standard classical estimators are the sample mean vector and sample covariance matrix. The affine equivariant M-estimator is robust but has several unresolved problems associated with it. Direct efforts to solve the problems of nonuniqueness for finite sample sizes and lack of a convergent algorithm to find these estimates have failed. The investigator proposes two stage estimators to circumvent these difficulties. The second problem is of identifying non-elliptical point clouds based on the robust residuals. Emphasis will be placed on detecting data sets which cause the breakdown of the M- estimators. The investigator also suggests to study the efficiencies of M-estimators and the higher breakdown statistics under a non- i.i.d. setting.